REU Site: Undergraduate Research in Integrative Evolutionary Biology

This award supports the establishment of an REU Site at the University of South Carolina that focuses upon integrative research in evolutionary biology. The objective is to provide training opportunities for undergraduates interested in two or more sub-specialties of evolutionary biology with an emphasis on the interface between molecular genetics and organismal-level processes. The program will enable qualified students to undertake summer-long and/or academic-year independent research projects under the direction of one or more faculty mentors who span the range of evolutionary biology. Students will learn about hypothesis generation and testing, as well as the techniques and experimental designs employed in molecular biology and one or more other subspecialty areas - including behavior, life history evolution, systematics, population biology, or ecological physiology. Students will present summaries of their work in departmental mini-symposia. Students will be recruited throughout the USA, and a strong emphasis will be placed on recruitment of underrepresented groups from smaller undergraduate institutions (especially institutions with large minority representation).